SBIR Phase I: Adaptive Phased Arrays for Broadband Wireless Access

This Small Business Innovation Research (SBIR) Phase I project will investigate the feasibility of using electronically steerable phased array antennas in conjunction with commercially available low cost wireless transceivers. The proposed research will demonstrate a low cost phased array that can be used with a commercial wireless networking card. In the past, phased arrays were big and expensive, but two critical developments have brought this technology into economic reach today. The company have conceived a novel technique for implementing ultra-low-cost phase shifters using PIN diodes and have also devised a method of controlling the phased array antenna that does not require radios specifically designed for this purpose. A prototype proof-of-concept system (including phase shifters) will be fabricated and methods for steering the antenna will be verified.

The potential impact of the combination of low cost radios with economical phased arrays is enormous, in that it could facilitate wireless broadband access in geographic areas where DSL and cable modem service are impractical. Deployment of broadband wireless access has been slow largely due to the cost of sending a truck with skilled personnel to set up and steer high gain antennas. Wireless Internet Service Providers (ISPs) report that the cost of installation often exceeds the cost of the equipment itself. By simplifying the installation, the cost of deployment is lowered dramatically.